Photochemistry of Quinones in Aqueous Buffer and Buffer/ Membrane System

In this RUI proposal from the University of Puerto Rico, Humacao, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Alegria will study the photochemistry of quinones in aqueous phase. The specific goals are to determine the structural characteristics of quinones necessary for water photooxidation; to measure relative quantum yields for these systems; to determine the role, if any, of hydroxyl radicals in the photooxidation; to determine whether superoxides are formed during the photooxidation; and to determine the mechanistic implications of the presence of oxygen on the photooxidation. All experiments are to be of the classical photochemical type using Hg-Xenon lamps for irradiation and EPR for product determination. Quinones are natural products which play important roles in bacteria, the photosystems of green plants, and cell mitochondria. Models with quinone have been created to mimic photosynthesis and cellular respiration. The results on these studies of the photochemistry of quinones should be useful in understanding naturally-occurring and artificial light conversion and storage.